Solvation and Reaction Dynamics in Liquids and Molecular Clusters

Professor Branka Ladanyi is supported by a grant from the Theoretical and Computational Chemistry Program to continue her theoretical work in the area of solvation and reaction dynamics in molecular liquids and molecular clusters. She will use a combination of formal theory and computer simulations to study the factors which influence solvation. Instantaneous normal mode analysis will be used as a means of describing the molecular events contributing to the short time dynamics of solvation. This tool will be used to study the dependence of solvation on the solute-solvent interactions resulting from solute electronic transitions and from solvent and solute vibrational degrees of freedom. Systems involving hydrogen bonding liquids, such as water and alcohols, will be studied to investigate the role which solute-solvent hydrogen bond formation plays in solvation dynamics. The question of the influence of solvents on the dynamics and outcome of chemical reactions is of central importance to chemistry, given that most chemical reactions in nature and in chemical industry occur in the presence of solvents. Ladanyi's research will help to gain a better understanding, on the molecular level, of the factors which determine the way chemical reactions are influenced by the presence of solvent.